Biological Equipment to Improve Undergraduate Research at El Paso Community College

EPCC's research projects which will utilize the proposed instrumentation include: (1) A study of the environmental factors that affect virus survival in groundwater and surface water and the structural changes associated with viral inactivation and reactivation. (2) Taxonomic studies of rattlesnakes in the southwest by comparing chromatographic profiles of snake venoms. (3) Isolation and characterization of microorganisms indigenous to the intertidal zone and to the EI Paso, TX area. (4) The use of bacteria and peat moss in the design of electrodes specific for heavy metals. (5) A study of Giardia Lamblia surface antigens will require the use of the SMART system and liquid scintillation system to purify and analyze the radioactively- labeled proteins.